Workshop to Integrate Computer-based Modeling and Scientific Visualization into K-12 Teacher Education Programs

We propose here a national workshop of EOT-PACI (Education, Outreach, and Training-Partnerships for Advanced Computational Infrastructure) partners, leading colleges of education, innovative researchers, teacher educators, teachers, and scientists. The workshop will establish collaborative pathways through which participants will research and develop sustainable strategies to integrate computational modeling and scientific visualization within science and math teacher preparation programs nationwide.